University of Hawaii R/V Kilo Moana Oceanographic Instrumentation - 2015

A request is made by the University of Hawaii to fund additional and replacement instrumentation for the R/V Kilo Moana, (KM), a 185’ general purpose research vessel. The vessel is owned by the Navy and operated by the University of Hawaii as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Instrumentation requested in this proposal incluses:
1) Scintillation counter $47,528
2) 12 kHz acoustic pinger $16,650
3) Reverse osmosis water purification system $8,135
4) High accuracy pressure standard $8,875
5) Replacement Xducers for subbottom profiling system $12,500
$93,688
Broader Impacts

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.